Molecular Analysis of a Gene Regulating Development

The homeotic genes of the fruitfly, Drosophila, participate in determining the developmental fate of cells. Antennapedia (Antp) plays such a role to cause normal generation of the fly's thorax and abdomen. Our goal is to understand in molecular terms how Antp carries out its role. Our attention is currently focused on the Antp promoters and peptide products. Antp encodes four proteins, and it makes these using RNAs orginating from two independent promoters. We will determine the spatial pattern of RNAs associated with each promoter over the course of embryogenesis. A complementary study will be made for total Antp protein using mutants lacking activity of one or the other promoter. Together these will define the cells which can be influenced by Antp action and whether one or both promoters is responsible in each cell type. To understand the functions of the different Antp proteins, mini-genes containing the cloned cDNAs will be transformed into Drosophila to direct ectopic expression of each form. The phenotypes caused by each will be compared to see if they are different, the same, or show some overlap. Our primary goals in this project period are to determine why Antp has two promoters and makes mutiple protein products. Many of the gene complexes associated with development have proven to have intricate regulation. This study should result in greater insight into some of the mechanisms utilized at the molecular level.